Unique Applications of THz Time-Domain Spectroscopy and Waveguide THz-TDS

This award provides funds for the continuation of a project in applying the THz time-domain spectroscopy (THz-TDS) technique pioneered by the group, and a new technique of waveguide Thz-TDS, to several problems. Among these are included the study of coherent THz pulse propagation in molecular vapors, the combined action of the Stark effect together with TEM-mode linear and nonlinear THz propagation on a parallel plate metal waveguide within a vapor cell, and measurements of the complex conductivity of conducting polymers. In addition, the research will involve new efforts in linear and nonlinear THz coherent transients, and the experimental study of the propagation of a THz pulse consisting of a coherent superposition of whispering gallery modes of a silicon cylinder.